Methods for Reducing the Blocking Artifact Observed in Images Which Have Been Compressed Using Transform Coding andVector Quantization

This project is funded under the National Science Foundation's (NSF) Small Business Innovation Research (SBIR) program, which is designed to provide an opportunity for small business, particularly the small high technology firm, to participate in NSF research. Phase I of the SBIR program serves as a filter to select promising proposals and determine if the firm can do high quality research. Phase II is the principal research project. Phase III is the conversion of the NSF-funded research into commercial applications and technological innovation supported by follow-on private venture capital or other non-federal financing. This is a Phase I project. The results of this project could very well become the basis for more effective commercial compression subsystems, critical to the successful use of imaging in a computer environment. The more efficient imaging systems would require less storage and transmission time and/or provide improved image quality.